Mechanics of Rift Zones and Fault Systems on Kilauea Volcanofrom GPS and Terrestrial Geodetic Measurements

This award is related to study of deformation and seismicity of Kilauea volcano using GPS data. The new, high precision geodetic data will ultimately allow one to distinquish among various models of the deep fault structure beneath Kilauea's